Parallel Processing Computation Server

Through this grant, the Department of Computer Science and Mathematics is developing a new laboratory facility, the Parallel Processing Computation Server, for undergraduate experimentation on fundamental concepts in various areas of computer science, which will represent a variety of fields, all falling under the principles of parallel processing. Computer science majors are the primary target audience, although students from other disciplines such as physics and mathematics are frequently drawn. Experimental topics include implementation of parallel algorithms, message passing computational model, versus the shared-memory model, and algorithm speedups. The new laboratory uniquely complements the university's traditional laboratories in computer science. Since a large percentage of graduates seek employment within the computer science field in industry, the parallel processing laboratory gives them the opportunity to work with real parallel processing machines, which, with the rise of client/server computing, is one of the foremost technologies in the computing domain.